CAREER: Scalable, High Performance Network Simulations Using Reverse Computation

Internet data traffic is doubling each year. If this rate continues,
data traffic will surpass voice traffic around the year 2002. However,
not included in the Internet traffic growth rate estimates are the
potential data generated by web phones and mobile web-enabled PDAs,
nor are the effects of future, unforeseen ``killer apps'' that may
great increase the current demand for bandwidth. Thus, the data growth
rate could be significantly higher in the aggregate and at the very
least, some ``hot sites'' may experience a quadrupling of traffic each
year. Unfortunately, due to technological barriers, bandwidth growth
rates per fiber will be limited to only doubling per
year. Consequently, short falls in available bandwidth may result,
thus placing the burden to effectively manage bandwidth on overworked,
network management teams. Network managers will require techniques and
tools that enable them to "nowcast" not only their local network, but
surrounding networks as well in order to ensure, stable, effective
bandwidth allocation in the face of dynamic, high-bandwidth, next
generation ``killer web apps''.

To address this "nowcasting" problem, we propose the use of a new
parallel simulation modeling technique called "reverse
computation". Here, network models designed for parallel execution are
able to execute both forwards and backwards in simulated time. For
simplistic network models, reverse computation has been shown to
reduce the state memory requirements of parallel optimistic
simulations by a factor of 100 and increase the overall speedup by a
factor of 6 when compared to classic state-saving techniques used to
support rollback processing in optimistic simulations. We also believe
reverse computation will allow large-scale network models to scale to
much larger processor configurations as well as enable a more
efficient design of simulation experiments.

The overall goal of this project is to understand the fundamental
functional and performance limits of reverse computation when applied
to the modeling of large-scale systems. Because of its importance and
impact, we have selected network models as our driving application.
To achieve this goal, we propose to investigate reverse computation in
the following five major research thrust areas:

1. the design and implementation of perfectly reversible computation
algorithms for event-list management, and time management to enable
scalable, efficient optimistic event processing,

2. the development of processes and techniques to effectively model a
large-scale, multi-protocol network scenario in a parallel simulation,
reverse computation framework,

3. the comparison and contrast of reverse computation performance to
state-of-the-art conservative synchronization techniques,

4. the creation of new methods and techniques for the design of
simulation experiments that take advantage of reverse computation,
and

5. the exploration of the linkages between reverse computation,
quantum computing and classic parallel/distributed computing that
could lead to a more unified view of these disparate classes of
computation.